CISE-RV: Computing Community Consortium - Enabling Bold, Far-Reaching Computing Research Visions

The Computing Community Consortium (CCC) mobilizes the computing research community to address emerging computing research challenges. Since 2006, CCC has served two key roles; 1) they serve as a bridge between computing and experts across disciplines and sectors; 2) convening the community for visioning activities where they are asked to not only envision the future of computing, but also the path to get there. These collaborative efforts between academia, industry, and government — and the reports, white papers, and other resources that result from them — leverage the collective expertise of the computing community to set long-term computing research trajectories in motion and address emerging national and global challenges.

The first step to advancing knowledge is gaining a clear understanding of the important challenges and large-scale technical problems, as well as what research opportunities exist to address those problems. CCC addresses these issue through its role in creating resources that generate, articulate and contextualize visioning ideas. The impact visioning and resources are also strengthened t through consistently sharing the research visions through multiple communication channels to varied stakeholders and audiences. While challenges in the computing community remain at the core, visioning activities increase in variety and disciplinary participation to meet multi-disciplinary national and global needs. Computing discoveries translated to non-computer science disciplines also multiply real-world impacts.